Support for International Travel of Graduate Students to AAMAS 2002 Conference

This award supports the travel and subsistence expenses of student participants in the First International Conference on Autonomous Agents and Multi-Agents Systems (AAMAS), being held July 15 - 19, 2002 in Bologna, Italy. This conference is entirely devoted to all aspects of research and application of agents technology, an important area of research in the success of the World Wide Web, electronic commerce, digital libraries, search agents, personal agents and synthetic agents. Participation in this conference will allow a diverse group of students, representing a wide range of research areas and methodologies, to present their research to the agents' community. In addition, special mentoring activities are planned for them.